Collaborative Research: I/UCRC in Smart Vehicle Concepts (Planning Grant)

An Industry/University Cooperative Research Centers (I/UCRC) planning meeting has been awarded to determine the feasibility of the Ohio State University with Virginia Polytechnic Institute of establishing a new I/UCRC for Smart Vehicle Concepts. The faculty members involved from the two universities have significant research programs in ground transportation and have been active in automotive systems and smart materials. The Center will focus on novel and emerging trends in vehicle design where smart structures, next-generation suspension or mounting devices, vastly improved actuators or valves, and intelligent sensors will be integrated to develop ground vehicles of the future.